CSUSB Noyce Mathematics Teaching Fellows

The CSUSB Noyce Mathematics Teaching Fellows project represents a partnership among California State University-San Bernardino, the San Bernardino City Unified School District, the San Bernardino County Superintendent of Schools, and the non-profit partners of the Center for the Enhancement of Mathematics Education and the California Math Council. The partners are working together to recruit fourteen STEM professionals and prepare them to teach mathematics in middle or high schools. The partners are also recruiting six Master Teaching Fellows who serve as mathematics mentors and leaders in the district. The Fellows are enrolling in a Master of Arts in Teaching Mathematics degree program with licensure in secondary education. Fellows are also being prepared for work in urban school settings with an emphasis on effective strategies to assist diverse populations, especially students who are English language learners. The Teaching Fellows are participating in professional development activities focused on pedagogical content and teaching strategies and are engaged in Lesson Study activities. The Master Teaching Fellows are supporting existing teachers and Teaching Fellows and are serving as resident teachers for credential candidates. The project is being rigorously assessed to determine its impact on recruitment, quality, and continued support of Fellows, and ultimately its impact on teaching effectiveness and teacher retention.